Integration of Endoscopic Imaging with Interactive, Image-Guided Surgery

9703714 Galloway The objective of this research is the development of a process for merging Interactive, Image-Guided Surgery (IIGS) with Minimally Invasive Surgery (MIS). The IIGS is the display of present surgical position and trajectory on preoperatively obtained tomographic images. The MIS is a technique by which surgical exposures and damage to healthy tissues are reduced by the use of endoscopes to allow surgical visualization through small openings in the skin. These two techniques are complementary, MIS presents high magnification, real-time imaging at the cost of a small depth of field and surface-only imaging, while IIGS provides a wide field of view with three-dimensional information but uses images which do not reflect anatomic changes since their acquisition. By using the proposed merging process, both the tomographic information and the video input will appear on the same computer screen allowing the surgeon to use each imaging modality for its strength and mitigating the disadvantages of each. The combination of these techniques would be accomplished in three steps: (1) the creation of a device which allows the determination of the visualization geometry of the endoscope and the tracking of that geometry in three-dimensional physical space, (2) the design, programming and testing of software to allow the display of high throughout image formation, and (3) the development of alternatives to conventional IIGS display modes to allow flexibility depending on the nature of the surgical situation. This process could result in improved outcomes as measured by more complete resections and reduced damage to healthy tissue. ***